Jaime Escalante Math and Science Program

This project expands the highly successful East Los Angeles College/Garfield High School Advanced Placement Calcumlus Program to include additional mathematics programs, and teacher enhancement programs for teachers of physics, chemistry, and computer science. In all, twenty-seven K-12 teachers will be instructed in the course design methods and teaching techniques of acclaimed master teacher Jaime Escalante. The project continues the efforts in motivating inner-city minority students towards serious involvement with mathematics and science. The program will be for three years, and, in addition to the teachers, will involve approximately 400 students. East Los Angeles College and the ARCO Foundation are providing cost- sharing equal to 204% of the NSF funding.